DISSERTATION RESEARCH: Geographic variation of gut microbial community in natural populations of house mice across the Americas

Recent research shows that the gut microbial communities can have significant effects on an individual's health as well as on susceptibility to obesity. This project combines laboratory experiments with quantitative information on body size variation from 26 populations of wild house mice across North and South America to shed new light on factors contributing to the composition and the function of gut microbes. Because humans and wild mice show similar variation in their gut microbial composition across the globe, the findings in wild mice may serve as a model to help understand the role of gut microbes in digestion and human health more broadly. The project will support the research to improve a doctoral student's dissertation. Data and specimens collected in the field will be publicly available through the Museum of Vertebrate Zoology at University of California, Berkeley and electroically.

House mice are an ideal mammalian model system that can be used, through manipulative laboratory experiments, to disentangle confounding factors that are associated with microbial community variation in natural populations. Mice derived from natural populations at high and low latitudes show pronounced differences in body size. Laboratory-reared descendants of these extreme populations will be used in manipulative experiments to test the effects of two dietary types and the two host genotypes on gut microbiota. Comparative metagenomics of the cecal contents of wild and laboratory-reared individuals will quantify the differences in microbial metabolic capability (for example, efficiency in energy extraction) between populations. Results will improve current understanding of mammalian gut microbial ecology.